Conference: Southern Regional Number Theory Conference

This award supports participation at the 2026 Southern Regional Number Theory Conference (SRNTC), to be held March 7 and 8, 2026 on the Baton Rouge campus of Louisiana State University. Number theory is an active research area in mathematics encompassing a broad spectrum of topics and tools. It has many connections to other research fronts, and has applications in physics and information technology. The SRNTC series serves as a flagship annual meeting for the number theory research community of the US Gulf Coast region. The 2026 conference brings together researchers from the region, while also attracting other world experts. Participants will disseminate and discuss fundamental new research results in various branches of number theory. Broader impacts of the conference include the formation of networks that promote interaction between experts and graduate students, and opportunities for early-career researchers to see a wide array of problems and techniques, and to present their own research through contributed talks.

During the conference, senior and junior researchers will share recent developments in the field, with a special eye toward fostering communication and community among number theorists in the US Gulf Coast region. The plenary speakers are Veronica Fantini, Bernhard Heim, Matilde Lalín, Yingkun Li, Cristian D. Popescu and Charlotte Ure. Their expertise spans algebraic geometry, arithmetic geometry, Iwasawa theory, the study of L-functions, and the theory of automorphic forms. More information can be found on the conference website: https://www.math.lsu.edu/~srntc/nt2026/